Enhanced Ultrafast X-Ray Generation using Pulse Shaping

Proposal Number: ECS-9616079 Principal Investigator: Margaret Murnane Title: Enhanced Ultrafast X-ray Generation Using Pulse Shaping In this research, precisely controlled ultrafast laser pulses will be used to enhance the process of coherent x-ray generation and thus demonstrate a practical source of x-rays with extremely short pulse duration. Novel approaches for enhancing and controlling the efficiencies of soft x-ray generation will be attempted, for the first time, by engineering the wavefunction in a quantum system using appropriate waveforms. The set-up will be the first of its kind and will have a great impact on the study of dynamic processes in molecules and wide-bandgap materials and also on microscopy and possibly lithography. These areas are important to the national technology base for optics, ultrafast communications, sensors, microscopy and x-ray lithography. Strong student involvement and relevant and multidisciplinary training for students is an integral part of this research.